Enhanced Learning of Human Anatomy: An Integrative Approach

Through this project, the College of Human Biology at the university is developing a progressive approach to teaching the Human Anatomy component of the curriculum. This approach involves the use of contemporary multimedia technology with traditional cadaver dissections. The increase in the number of students entering Allied Heath and Health Science professions has increased the demand for these courses. The advancements provide students with hands-on training through cadaver dissections complemented with state-of-the-art computer simulations in the areas of gross and microscopic anatomy. The requested equipment allows for major improvements in those courses where human anatomy is a significant portion of the subject matter: Kinesiology, Comparative Anatomy of Vertebrates, Anatomy and Physiology, and Microscopic Anatomy (which is offered as an Independent Study). The requested equipment also allows for the development of a new course, Advanced Human Anatomy. These improvements enhance student learning by increasing involvement, interaction, and interest with the material. Students also benefit from the hands-on and technological experiences that are critical for success in the Allied Health and Health Science professions.